Marine Technicians

9400282 Smith The University of Alaska (UA) requests renewed funding for shipboard technician activities associated with the research vessel ALPHA HELIX, a 133-foot vessel. The ALPHA HELIX is owned by the NSF and operated by UA. In Calendar year 1994, the ALPHA HELIX will support 145 days of NSF-funded research projects in the Gulf of Alaska and the Bering Sea. UA technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore, and assisting with scientific operations necessary before and after cruises. Budgets for years 2 and 3 of this award will be negotiated when ship schedules for those years are finalized.